Mathematical Sciences: Mathematical Problems in Fluid Mechanics

This project will cover a number of mathematical problems arising in fluid dynamics. Areas covered are attractors for dissipative nonlinear equations, turbulence, numerical analysis of singularity development, the study of coherent structures in turbulence, low dimensional dynamical systems modelling the origin of binary stars, and hyperbolic conservation systems. Fluid dynamics studies the motions of liquids and gases. Computational and analytical mathematical analysis of such motions is crucial to our understanding of flow of air over an air foil and microbursts in the neighborhood of thunderstorms for example.